Highly Correlated Metals and Insulators

Electronic and magnetic interactions in the presence of disorder provide for a wide variety of collective effects at low temperatures. They propose to study: (i) The Mott-Hubbard transition from the antiferromagnetic insulator to the correlated metal, both in the limit where Coulomb interactions alone dominate and where the effects of electron interactions and disorder are comparable. Experiments at milliKelvin temperatures above, below, and at the metal-insulator transition should help deconvulate these competing effects. (ii) The insulating properties of transition metal and rare earth oxides, where a description in terms of both electronic and magnetic glassiness appears to be most appropriate at low temperatures, and (iii) The correlation-enhanced metallic properties and the anisotropic superconducting order in heavy fermion compounds.